U.S.-Mexico Collaboration: Workshop on Environmental Biology of Deserts and Oceans; Guaymas, Mexico, March 1996

9511838 Elser This Americas Program award will support travel and related expenses for eleven U.S. scientists and five graduate students, to participate in a joint U.S./Mexico workshop to be held in Guaymas, Mexico. Organizers are Dr. James Elser, Arizona State University, and Dr. Edward Pfeiler, Instituto Tecnologico y de Estudios Superiores de Monterrey (ITESM), Sonora, Mexico. The workshop will focus on the environmental biology of the coastal Sonoran region as a step towards increasing scientific exchange between U.S. and Mexican scientists in this ecologically diverse desert-ocean landscape. The potential for transnational and global environmental disruptions, including climate change, pollutant transport across international boundaries, and biodiversity loss, has increased with the global economy. This potential is especially strong in the environmentally sensitive and economically dynamic U.S.-Mexico boundary region and calls for increased international scientific exchanges in the area of basic and applied environmental biology. This workshop will bring together senior scientists, and students from both the U.S. and Mexico, to identify research questions of mutual interest for future investigations. ***